The Restructuring at SUNY Cortland of Science, Mathematics, and Pedagogy Experiences for K-6 Teachers

9354045 Barr A series of eight full day pedagogy related seminars for six science and mathematics faculty from SUNY Cortland, four faculty from related community colleges and two master teachers are being conducted to produce course outlines for a series of related courses in mathematics, pedagogy, science and field experiences for K-6 pre-service teachers. All the seminars are focused on changes in curriculum and course structure which follow upon the "Conceptual Change" approach to teaching and learning. ***